Frontiers of Electron Microscopy in Materials Science (FEMMS) Conference; Berkeley, CA; October 5-10, 2003

The grant supports the conference on electron microscopy to be held in Berkeley, CA from Oct. 5 -10, 2003. This biannual conference has been a regular feature of the microscopy world since 1986 with focus on the latest techniques, instrumentation and theories. This particular symposium is timely with emphasis on the current interest and application of electron microscopy in nano and bio technologies as well as recent applications for in-situ studies with time-resolved microscopies. New techniques of sample preparation such as FIB, and computer control of transmission electron microscopies removed long standing barriers in extending these techniques for teaching both in-class and with remote control over the internet, and these new advances will be discussed in the symposium that should be of interest to young researchers and students.

A large number of international experts in electron microscopy will be presenting invited talks on the recent advances. Funds from NSF augment the commitment of several national laboratories and instrumentation companies to assist the attendance of several speakers and to offer financial aid to young US researchers in the field.